CONCUR '93 - Fourth International Conference on Concurrency Theory; August 23-26, 1993; Germany

9311650 Smolka This award provides funds in support of CONCUR '93 - The Fourth International Conference on Concurrency Theory, to be held August 23-26, l993, on the campus of the University of Hildesheim, Germany. The proceedings of CONCUR '93 will be published as a volume in the Lecture Notes in Computer Science series by Springer-Verlag. The conference's purview spans all areas of semantics, logics and verification techniques for concurrent systems. Particular topics include, but are not limited to, process algebras, Petri nets, true concurrency, shared-memory and message-passing formalisms, operational and denotational models, programming language semantics, concurrent logic and constraint programming, fairness, temporal logics, compositional analysis techniques, and verification tools. ***